The AirWorks for Kids Project

9614633 Lindsay Through a collaboration of the DuPage Children's Museum, Argonne National Laboratory, and National-Louis University, a three-element project is being conducted focusing on the following: 1) a research component that studies children's naive perceptions of the phenomena of air and wind energy, 2) an exhibition component that uses the project research to design, develop, and construct a 3- 4,000 square foot "process" oriented exhibition with a 2-story exhibit tower and 12-15 replicable exploratory workstations, 3) a program component that offers explorations for children adapted for museums, preschools and elementary school classrooms. Target audiences include young children and their parents, pre- and in- service early childhood teachers, and museum professionals interested in reaching very young children.